Relativistic Nuclear Physics

The research aims at unified theoretical model of nuclear scattering and structure. Various approaches to the Dirac random phase approximation for isoscalar and isovector nuclear excitations will be combined with the Dirac distorted wave impulse approximation to study inelastic polarized proton nucleus scattering to discrete states and the quasi elastic continuum. A feasability study of finite nucleus renormalisation problems will be made.